Postdoctoral Fellowship: MSPRF: Random Interfaces, Growth Models, and Gibbsian Line Ensembles

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Christian serio is “Random Interfaces, Growth Models, and Gibbsian Line Ensembles”. The host institution for the fellowship is the University of California - Berkeley and the sponsoring scientist is Alan Hammond.